CAREER: Probing and Fault Injection of Distributed Systems

This research will investigate fault injection techniques for the evaluation and validation of dependable protocols. The project will focus on techniques that can be used to demonstrate three aspects of a target protocol: (i) detection of design or implementation errors, (ii) identification of violations of protocol specifications, and (iii) insight into design decisions made by the implementors. The end goal of the project is the investigation of techniques for testing the fault-tolerance capabilities of dependable protocols and the development of a tool for the experimental evaluation of commercial and prototype protocols. The approach will center around a technique called`script-driven probing and fault injection.` A distributed protocol can be viewed as an abstraction through which a collection of participants communicate by exchanging a set of messages. Hence, no distinction is made between application-level protocols, communication protocols, or device layer protocols. A probe/fault injection (PFI) layer is inserted below a target protocol to filter and to manipulate the messages that are exchanged between participants. The fault injection layer supports the execution of deterministic or randomly-generated test scripts to probe the participants and inject various faults into the system. In particular, by intercepting messages between two layers in a protocol stack, the fault injection layer can delay, drop, reorder, duplicate, and modify messages. Furthermore, it can introduce spontaneous messages into the system to probe the participants and to orchestrate the system execution into a particular path. Since timing constraints are often an important component of the dependability requirements on a system, the intrusiveness of a fault injection mechanism on a target system is a key issue which will be addressed by this research. The educational component of this CAREER project will include `undergraduate mentoring` and `learning via experimentation.` Mentoring exposes students to one-on-one technical interactions with instructors and more senior students. Learning via experimentation has a two pronged effect. It allows students to `practice` how to apply knowledge and to`learn` how to obtain new information. These two aspects of the plan will be formalized into the curriculum with the following educational activities: (1) Refocus the Undergraduate Directed Study to involve junior and senior-level students in some of the ongoing prototyping activities in research projects and in various laboratories on campus; (2) Develop a curriculum track that emphasizes experimentation to enhance learning of software systems concepts.